Conference on Fundamental Problems in Quantum Theory, University of Maryland (Baltimore)

The conference on Fundamental Problems in Quantum Theory, will be held at the Baltimore campus of the University of Maryland, June 18-22, 1994. Issues in the foundations of quantum mechanics are quite timely, and cover a broad range of research areas, including interpretations of quantum mechanics, mesoscopic physics, interferometry, geometrical effects, and quantum optics.